21st International Conference on Mathematical Geophysics, June 16-21, 1996, Santa Fe, New Mexico

9627283 Rothman This grant is to partially support travel of U.S. Scientists to the 21st International Conference on Mathematical Geophysics to be held on June 16-21, 1996, in Santa Fe, New Mexico. The conference meets every two years in different countries and is sponsored by the Committee on Mathematical Geophysics of the International Union of Geodesy and Geophysics. The conference themes will be 1) Fundamental problems in geophysical fluid dynamics, 2) Imaging and modeling complexity in the Earth's deep interior, 3) Natural Hazards: theory and phenomenology, and 4) dynamical structure of complexity in the earth sciences. *** ??